RII FEC: Research on Impacts of Hydroclimatic Extremes in Water-Rich Regions and Collaborative Adaptation Planning

Current trends in the frequency of extreme events exacerbate the risk of hazards from phenomena such as floods, leading to economic instability, social challenge and harm to health. Recent research shows that such impacts fall disproportionately upon smaller communities, which are often excluded from larger-scale planning for adaptation to natural hazards. The risk of significant impacts is unevenly distributed spatially, with some regions being high-risk areas that have increased exposure to natural hazards. The current project addresses the disproportionate impacts of these events and increasing flood risk in U.S. Gulf regions, where some communities inhabit areas with water quality problems, struggle with the capacity to mitigate flooding, and suffer from failing water and wastewater infrastructure. This project will use a community co-production approach with stakeholders in three U.S. Gulf regions: the Acadiana region in south-central Louisiana, the Mobile Bay region and surrounding counties in Alabama, and the City of Jackson and surrounding counties in Mississippi. The project provides development opportunities for early-career researchers and students, with unique opportunities to expand research infrastructure and workforce development.

This project presents an innovative development and application of integrated hydroclimatic modeling and socioeconomic analyses to reveal resources and outcomes in communities vulnerable to extreme harmful events. The convergent research plan and methods span multiple disciplines (history, hydrology, engineering, climatology, geography, economics, and sociology) and will advance the field of adaptation by examining historical conditions, current community experiences relating to exposure and impacts of water-related challenges (e.g., flooding, impaired surface water quality, deterioration of water supply and wastewater infrastructure), the needs of planners, and the design of hydroclimatic predictive models and the types of information they typically produce. The approach with community stakeholders will yield actionable knowledge in the form of data, models, and tools that resolve uncertainties in future extreme hazardous events and that account for needs and impacts, thus enhancing the quality of information available for community-level decision-making. The project outcomes—including novel and integrated datasets, predictive models, maps, planning scenarios, and education and professional development modules—will increase the capacity of local officials and stakeholders to improve resilience. The project will lead to significant research enhancements in the form of new frameworks and tools for event modeling and hydrologic forecasting that leverage and expand the U.S. national NextGen Water Resources Modeling Framework. Through collaboration and co-production, the project will improve how researchers and practitioners integrate community voices and knowledge into models to develop adaptation and resource allocation strategies.